Second Annual Cybersecurity Summit for Large Federally Sponsored Facilities; Arlington, Virginia; November or December, 2005

This proposal is to host the Second Annual Cybersecurity Summit 2005. The summit will address effective and efficient strategies for securing federal sponsored facilities' IT infrastructure. This summit will bring together a group of leading experts to identify major problems and strategies for solutions for a class of very difficult problems of technology, policy, and practices that increasingly threaten the successful operations of large facilities in support of scientific research.